Introduction of Computer-Controlled Gas Chromatography/Mass Spectrometry (GC/MS) into the Chemistry Curriculum

The continuing prevalence of GC/MS instrumentation in industrial and academic research laboratories makes it increasingly important that baccalaureate chemists gain experience in this technique as an integral part of their undergraduate education. A primary objective of this project is to give undergraduate chemistry students at California State University-Hayward hands-on experience with GC/MS instrumentation and its capabilities for solving problems in chemical analysis, physical measurements, organic and inorganic synthesis, qualitative organic analysis, and undergraduate research projects. The instrument will also introduce students to computer control and spectral library searching. Additionally, the unit will augment training in other chemistry courses by providing GC/MS analysis for students of organic chemistry and illustrative spectra for introductory courses in chemistry.